Planning meeting for an Industry/University Coopertive Research Center for Musculoskeletal System Analysis

Abstract EEC-9616415 An important need exists to improve the understanding of the musculoskeletal system of the human body to be able to design and manufacture implants that mimie human motions. Research with computers, engineering analysis, and simulation and engineering design techniques could contribute to better health and be valuable to rehabilitation and manufacturers of inplants. The Colorado School of Mines in collaboration with the Rose Musculoskeletal Research Laboratory and the University of Colorado's Medical School will hold an industry/university planning meeting to determine the economic viability of forming an Industry/University Cooperative Research Center for Musculoskeletal System Analysis. The proposed I/UCRC research agenda will study the kinematics of joints, concentrating on the knee with projects on "Image-Based Sensing," "Portable Sensing Systems," "Modeling and Simulation," and "Advanced Biomaterials."